Establishing Limits for Positron Plasmas -- Long Term Storage, High Densities, and Cold Beams

Phenomena involving positrons (i.e., the antiparticles of electrons) are
important in many fields including astrophysics, plasma and atomic physics, and materials
science. Much progress has been made recently in these areas through laboratory experiments
that exploit nonneutral plasma techniques. This proposal describes a program of research to
create and understand the physics of novel states of single-component positron plasmas in new
regions of parameter space. These antimatter plasmas will be used, in turn, for a range of
scientific and technological applications.